Integrated Multicast for Ad Hoc Networks (IMAHN-NSF)

This proposal will investigate, design and deploy a suite of novel
multicast protocols aimed primarily at ad hoc networks. The investigators
maintain that, due to the inherent broadcast capability, wireless networks
are well suited for multicast communication. The contributions of the
proposed suite of multicast packet routing and forwarding protocols (IMAHN)
can be summarized as follows: (1) design, evaluation, prototyping and
deployment of a suite of multicast routing and packet forwarding protocols
for ad hoc networks, and (2) development of an integrated multicast
routing solution for the mixed-media internetwork of the future; this
includes investigation, evaluation, prototyping, and deployment of
mechanisms providing seamless multicast service.

IMAHN will emphasize the following: (1) robustness vs efficiency: many
existing multicast routing approaches rely on state in routers to keep
track of multicast group members. This, coupled with the high volume of
routing information exchanges and slow convergence, makes traditional
multicast approaches untenable in highly dynamic ad hoc networks (AHNs)
composed of anemic (low-power, low storage capacity) hosts. We propose a
new technique, adaptive flooding, that stresses rapid and robust delivery.
IMAHN will consist of a suite of adaptive protocols addressing a range of
AHNs and mobility patterns. In constantly changing AHNs, redundant
broadcasting may be appropriate, while, in less dynamic AHNs, a range of
more bandwidth-efficient multicast protocols will be considered; (2)
adaptability: hosts should be able to (and will) migrate freely among ad
hoc, fixed-infrastructure mobile, and traditional wired networks. In order
to function appropriately -- when faced with changes in the underlying
infrastructure -- hosts need switch on-the-fly among multiple multicast
mechanisms; (3) unlimited mobility: some existing solutions are geared
towards discrete mobility where periods of movement are interspersed with
periods of rest. Others assume certain limits on direction, speed and
number of simultaneously moving hosts. In contrast, we stress universal,
unlimited mobility of all network components; (4) integrated multicast:
multicast solutions for AHNs will most likely differ substantially from
those for fixed networks (one of the main reasons is the marked difference
in transmission rates). In order to offer seamless and integrated multicast
service for the mixed-media internetwork of the future, IMAHN will develop
novel mechanisms for inter-operation of fixed and wireless multicast
solutions.